Development of Neuronal Identity

A central problem in developmental neuroscience is how individual neurons acquire a constellation of idiosyncratic properties, such as their location, shape, function and synaptic connections, that define their uniqueness. This issue will be addressed in the nervous system of the leech embryo, a species that offers the advantages of having relatively few, stereotyped cells that are easily accessible to experimental manipulation. The mechanisms by which segmentally repeated patterns of neuronal development are modulated differentially among the 32 body segments to provide for the specialized functions of the various body regions, such as the head, the reproductive organs and the tail, will be studied. The hypothesis to be tested is that the segment-specific modulation of the developmental pathway is the consequence of an intracellular subdivision of an early embryonic precursor cell into sectors that are differentially labeled with indicators of the future longitudinal body axis and are parcelled out in an orderly manner to the daughter cells that found successive body segments. Cells in the embryo will be marked by intracellular injections and marking of the cell surface with cell lineage tracers. Molecular cell cloning technology will also be used to identify homeotic genes in the leech that may be involved in specifying neurons to specific body segments. The study of the mechanisms underlying neurogenesis in this simple nervous system promise to provide insights of general relevance to the understanding of nervous system development in more complex organisms.